Simultaneous Consideration of Seismic Tomography and Flow

Until now, seismic Modelling of three dimensional Earth structure and the study of mantle convection have been performed separately, with the latter occasionally employing, a posteriori, the results of the former. One objective of this project is to further advance understanding of mantle dynamics by performing simultaneous inversions of long-period seismic waveform data and geodynamic data consisting of the observed plate velocities and nonhydrostatic geoid. The second objective is to further refine previous treatments of viscous flow in the mantle. The simultaneous consideration of seismic and geodynamic data will help to stabilize the seismic inverions in those geographical areas that are poorly resolved and it will also allow one to address important issues in solid-Earth physics and geodyamics.